Arctic Environmental Data and Information

OPP-9728364 PI Posson Abstract In 1988, the Interagency Arctic Research policy Committee (IARPC) established the AEDD Working group to identify, organize, preserve, and present information about Arctic environmental data which is available from US Federal agencies and selected Alaska State agencies and academic institutions. The Arctic Environmental Data Directory (AEDD) was assembled as a subset of the Earth Science Data Directory of the U.S. Geological Survey. AEDD contains more than 400 references to data sets, each of which has been reviewed for completeness, consistency, and accuracy. Data sets described cover many disciplines including geophysics, hydrology, geochemistry, oceanography, cartography, atmospheric physics and chemistry, marine and terrestrial biology, health and medicine, contaminants, remote sensed data, and in situ data. AEDD resides on a computer system accessible to scientists, policy makers, educators, and the interested public over the internet.